Development of Undergraduate Engineering Courses in Computing and Visualization at University of Utah

Development of Undergraduate Engineering Courses in Computing and Visualization at the University of UtahA new and innovative method of undergraduate teaching in engineering is being developed by the Department of Computer Science, with the cooperation and participation of the undergraduate teaching faculty of engineering. Specifically, the departments of Chemical Engineering, Civil Engineering, Computer Science, Electrical Engineering and Material Sciences are participating in this course development proposal. Furthermore, these engineering departments are planning to coordinate teaching methods and computer equipment with the Departments of Physics and Mathematics in the College of Science, who are making similar upgrades of their undergraduate teaching. A basic course in Computer Science is taken by all of the students at the outset.Next, each of the engineering departments are making coordinated curriculum developments which best suits their purpose.